Essig Museum of Entomology Relocation

The Essig Museum of Entomology at the University of California Berkeley is a major repository of insect and other terrestrial arthropod specimens from the New World, especially California and adjacent regions in western North America. It has had a long-term research focus on the eastern Pacific Rim and Pacific Islands. It is one of the largest university entomological museums in the country and has served a critical role in the training of systematists over the last century.

The current project will upgrade and move the Essig Museum collection into new space in the Vertebrate Life Sciences Building. This will allow the consolidation of the natural history museums on campus, providing better integration of technical support, outreach, and administration as well as scientific research and training. The new space will allow for several decades of expansion of the Essig collections.